International Seminar on Wood Engineering - Joint Project

This project consists of a series of one-day seminars on wood technology to be coordinated in several cities,. Washington, D.C., Chicago and Los Angeles, during the summer or fall of 1991. The seminars will include international representatives as well as U.S. participants.